Human Perfectibility and Reproductive Science and Technology

The purpose of this project is to complete the research for a book to explore the interaction of the ideology of human perfectability and reproductive science and technology. The author argues that, in the wake of the new sciences and technologies of reproduction, standards are being set for the "perfect child," echoing an older ideal, the "perfect man." The book examines trends, counter-trends and alternatives to pressures for a new health hierarchy of birth. This grant will enable the investigator to study works in feminist and postmodern philosophy that provide a way of examining the idea of human perfectibility and reproductive science and technology within a network of intersecting, unequal power relationships. Drawing especially on feminist interpretations of the European philosopher Michel Foucault, the investigator finds a framework for illustrating how perfectibility standards are emerging, not through grand design, but through the intersection of the discourses and practices of differently situated groups: through medical professionals, parents, researchers, set against persisting negative attitudes toward people with disabilities. Feminist postmodernism provides a way of heeding counter-voices from genetic support groups, concerned medical personnel, parents of affected children -- of linking them together and thus of offering alternative directions for reporductive science and technology and for framing procreative values and norms.